Creation of a Microscope Suite for Undergraduate Teaching and Student Research

epartment is modernizing and expanding the quality of biology ion utilized in a number of courses in which direct tion of cellular and small phenomena is important. The pivotal f such instruction is a universal research microscope, clinical ry microscopes, and a stereo microscope which allows duate students, both in the classroom and in research settings, ve themselves directly in the major challenges of modern . The college will contribute an amount equal to the award.